Proposal for a Japan-U.S. Symposium on Risk Communication

The March 2011 Great Eastern Japan Earthquake (GEJE), resulting tsunami, and Fukushima Dai-ichi
power plant safety systems failures were catastrophic for Japan, and have influenced risk
perceptions and policies globally. The nature of that influence remains an active area of
social scientific inquiry. Early findings suggest that risk communication and management inadequacies
contributed to the social amplification of events. The symposium will provide
a timely opportunity to synthesize emerging social and behavioral risk research findings regarding
these extreme events, develop a risk communication and management research agenda to address
the challenges identified, and inform ongoing international risk communication and disaster
risk reduction efforts.

Research to date on the nature and consequences of Great Eastern Japan Earthquake (GEJE) and Fukushima-related risk communications identifies a wide range of contributory factors, ranging from lack of scientific consensus
and public misconceptions about the risks, to social amplification of risk by the media, lack
of transparency by management, and insufficient public engagement. Nevertheless, an overarching
synthesis and assessment of theoretical implications and resulting risk communication research
questions stemming from these events is lacking, and would advance the related risk and decision
sciences. Extreme events of the last decade have increased in impact, heightening the global focus on
the necessity of disaster risk reduction. International efforts to improve the evidence base
for risk management include the Integrated Research on Disaster Risk (IRDR) supported by the
United Nations International Strategy for Disaster Reduction (UNISDR), the International Council
for Science (ICSU), and the International Social Science Council (ISSC) and UNISDR activities,
including its lead role in developing a post-2015 Hyogo Framework for Action. Risk Interpretation
and Action (RIA) is a key activity of the IRDR, with the aim of understanding how people, both
decision-makers and ordinary citizens, make decisions, individually and collectively, in the
face of risk, and thereby contributing to an integrated research approach to disaster risk
reduction, to ultimately decrease disaster risks worldwide. The proposed symposium advances
this agenda, as well as integration of this research with research on the communication and
management of extreme technological risks, and enhances collaboration between Japan and the
U.S. in the social, decision and risk sciences.